Expedited Novel Research Award: Performance Optimization for Systems with Multiple Operating Conditions

This research proposal concerns the designs of nonswitching controllers for systems with multiple operation conditions. These multi-mode control systems occur in many practical systems, such as aircraft, automobiles and power systems. A nonswitching controller can potentially reduce costs and improve performance compared to the commonly used gain switching controllers. The design approach in this proposal will be based on a recently developed novel multi-model controller design approach built on multivariable state space techniques. The focus here is to investigate the performance optimization aspect of systems with multiple operating conditions. A main motivation is that the problem formulation would allow the construction of a procedure for the computation of simultaneous stabilizing controls.